Nonlinear Dynamics and Pattern Formation in Combustion

Matkowsky 9705670 We pursue a research program in nonlinear dynamics and pattern formation in combustion. The program involves a synergism of analytical and numerical studies of problems in combustion and flame propagation, which has been successful in elucidating solution behavior of the highly nonlinear systems of PDEs which we study. In particular, interest centers on problems exhibiting complex spatiotemporal dynamics in gaseous combustion as well as in solid fuel combustion. In gaseous combustion, we consider four different problem areas: (a) flames with sequential reactions, (b) flames in stretched flows, (c) flames stabilized on a burner, and (d) flames in gas filled tubes. We also consider problems in solid fuel combustion, in which combustion waves are used to synthesize advanced materials. In this relatively new and innovative technological process, which appears to enjoy many advantages over conventional technology, the combustion wave propagates through the sample, converting unreacted solid powder mixture to solid product. Our analytical studies are based on bifurcation and nonlinear stability theories, which employ asymptotic analysis and singular perturbation theory in the neighborhood of bifurcation or other transition points, resulting in a local description of the solution in a neighborhood of the appropriate critical point. Then an adaptive pseudo-spectral method, developed by the proposer and A. Bayliss, is employed for large scale scientific computations, with which the local description is globally extended. The solutions of the problems considered exhibit layer type behavior, i.e., localized regions in which the solution varies very rapidly. It is a challenge to numerical methods to accurately and efficiently resolve such behavior. The adaptive pseudo-spectral method has been shown to successfully meet this challenge. As critical parameters of the problem are exceeded, transitions to states with successively greater degrees of spatio-temporal complexity occur. Our goal is to describe the transitions as well as the resulting spatio-temporal patterns. The analytical studies, in addition to elucidating system behavior, e.g., parameter dependencies, also serve as benchmarks for the ensuing numerical computations. Codes are thus validated not only for simple solutions, but for complex spatio-temporal behavior as well. In addition to studying specific combustion problems, we contribute to the development of both analytical and numerical methodology for the investigation of these and other problems. Finally, where possible, comparisons to relevant experimental observations will be made. We investigate mathematical problems describing combustion processes. The primary concern in these studies is the understanding of basic mechanisms, including cause and effect, influencing combustion, which is a necessary prerequisite to any attempt to control the combustion process. In particular, we study the characteristics, e.g., structure, propagation speed, stability, etc., of combustion waves. An example of the problems considered is the use of combustion waves to synthesize advanced materials. In the conventional technology, a powder mixture of components is placed in a furnace and "baked" until it is well done. In combustion synthesis the mixture is pressed into a solid and ignited at one end. A combustion wave then propagates through the solid converting it to desired product. The process is significantly faster and cheaper than the conventional technology. The nature of the product is determined by the manner of propagation of the combustion wave, which is the subject of our investigation.